Advancing Personalized Engineering Learning Via an Adaptive Concept Map

The goal of this project is to explore how an adaptive concept-mapping tool can ease students' cognitive overload and assist them with creating conceptual connections across a course. The adaptive map tool can assist students in visualizing large stores of information in a way that mimics the approaches of subject-matter experts and thus promotes learning. The adaptive map tool is being implemented and assessed in a Statics course, one of the core courses for several engineering disciplines. The research team is leveraging information in existing content repositories (such as textbooks) in order to minimize the effort needed for development of the adaptive map tool. The findings from this project are being disseminated through conferences and journals and through a dedicated website.